Support of American Scholars in the Natural and Social Sciences in Collaborative Research in India, Award in IndianCurrency

Description: This project provides funds to the Asian Cultural Council (ACC) to support research of U.S. scholars selected under the Indo-U.S Subcommission on Education and Culture. Awardees will come from a wide range of scientific fields in the social and physical sciences, and will work with counterparts in India. Funds from this grant are used for travel expenses and costs related to the scholars' research projects, and to pay for stipends for awardees. The ACC scientific committees select nominees for submission to NSF, which makes final technical evaluation of the awardees. Past participants have been engaged primarily in social and behavioral sciences, with some in geological and few in physical sciences. Part of the award funds supports the ACC administrative work. Scope: Collaborative work by Indian and Indian scientists is demonstrated in this project. The ACC representative office in India obtains the necessary clearances for the U.S. scientists to be affiliated with various Indian academic and research institutions. They also manage the logistics of travel of each scientist, his/her family when appropriate, shipping of research material into and out of India, as well as language training, and assisting with research arrangements. The project fits well with the objectives of the U.S.-India Program.